Mathematical Sciences: Studies in Representation Theory

DMS-9501098 PI: Schmid Schmid will study representations of reductive groups and Lie algebras from various points of view. He will employ tools from topology, differential geometry, algebraic geometry, and analysis. The expected results and some of the methods developed for the study have applications outside of representation theory. The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics.